Solid State Precursors to Oxide Catalysts

9412971 Poeppelmeier The primary focus of this research is to develop the concept of salt imbibition for the purpose of generating new synthetic methods and chemical reactions that lead to novel precursors for high surface area mixed metal oxides that are catalytically active. An emphasis will be on transforming the precursors at low temperatures to mixed metal oxides, characterizing the solid-state products, and studying the nature of acidic and basic sites at the surface and their role on surface reactivity. %%% The synthesis and characterization of new materials is one of the major forces in science that causes change and leads to advances in technology. Solid-state chemical approaches to generating novel catalytic materials such as the high surface area metal oxides that are the subject of this research are offering new applications in emerging areas of heterogeneous catalysis.